SPX: Collaborative Research: NSF Scalable Parallelism in the Extreme (SPX) Workshop on Future Directions for Parallel and Distributed Computing

This NSF Scalable Parallelism in the Extreme (SPX) workshop provides an opportunity for SPX principal investigators as well as other researchers in the areas of parallel and distributed computing to discuss the latest advances, demonstrate technical accomplishments, and inform NSF of important and groundbreaking future research directions in these areas. The technical program, while taking stock of recent results, will include breakout sessions to discuss research directions that address critical concerns in the design and implementation of extremely scalable parallel and distributed systems. The broader impacts include broadening participants' perspectives and providing a venue to form new collaborations. Furthermore, a post-workshop report describing the most important and promising research directions will be made available to the broader research community, to inspire research in those directions.